SBIR Phase I: Real-time, Low Cost Point-and-Shoot 3D Camera

This Small Business Innovation Research (SBIR) Phase I project aims to build a low cost, real-time 3D camera. The research objectives are to prototype a portable, compact and low power camera capable of capturing 3D models of indoor scenes. This research will use techniques from computer vision, robotics and high dimensional statistics and signal processing in order to achieve its goals. The novelty of the research is in bringing together cutting-edge ideas from these diverse disciplines to solve real-world problems in 3D modeling. The anticipated technical results include a working prototype that enables real-time operation without any human intervention.

The broader impact/commercial potential of this project includes the architecture, engineering and construction (AEC) industry. An industry where mistakes can prove costly both in terms of money and lives, our research can enable real-time tracking of the construction process, enabling workers, architects and engineers to ensure that mistakes are detected and corrected promptly during construction, and
historical monuments are preserved over time as 3D models. Additionally, this technology can aid educational activities in classrooms, help with remote surveillance etc., with multitude of applications to impact people from all walks of life.